Quantifying Charge and Stability Influences on Protein Adsorption with Synthetic Mutants of Bacteriophage T4 Lysozyme

This project deals with application of a kinetic model describing the general sequence of events undergone by protein at an interface to quantify protein charge and stability effects on interfacial behavior. Selected synthetic mutants of bacteriophage T4 lysozyme are produced form transformed cells obtained from the Institute of Molecular Biology at the University of Oregon. Mutants exhibiting differences in thermodynamic stability and charge are used to quantify the influences of these molecular properties on reaction rate constants describing protein attachment and unfolding at each of a series of solid surfaces differing in hydrophobicity. Silicon surfaces will be modified by silanization with dichlorodimethylsilane, and in situ ellipsometry will be used to measure the adsorption kinetics and isotherm describing each specific protein- surface contact. Upon completion of the project, current multi-protein adsorption models could be re-examined and refined by studying adsorption from mixtures of lysozyme mutants. Experimentation with more relevant mixtures of proteins would then allow deviations from predicted behavior to be related to properties such as molecular size and shape in a more readily quantifiable way. This approach is expected to result in a sound starting point for quantifying competitive adsorption from complex media and may lead to new separation techniques.